COSEE Central Coordinating Office

P.I: Thoroughgood
Proposal: 0215437

The Consortium for Oceanographic Research and Education (CORE) will provide coordination, communication, evaluation and strategic planning services to the Centers for Ocean Science Education Excellence network. Central Coordinating Office activities supported by this award will include a series of network PI and outreach meetings to build community consensus and enhance communications between Centers. The COSEE CCO will also conduct an annual 'value-added' workshop on a topic of concern to the network. Topics will include program and network evaluation and assessment as well as the development of an overall strategic plan for COSEE. In addition, the CCO will handle the recruitment and organization of an appropriate national advisory group for the network. The office's functions will also encompass outreach to non-COSEE educators and scientists as well as agencies and institutions with an interest in ocean science education. A COSEE network website will be established in conjunction with the Bridge website. Subcontractors include the Office of Program Evaluation at the University of South Carolina (evaluation) and the Virginia Institute of Marine Science (website development).